Advanced Study Institute on Techniques and Concepts of High Energy Physics; Tallahassee, FL; June 13-24, 2002

The proposal requests funding for partial support for the Advanced Study Institute (ASI) on Techniques and Concepts of High Energy Physics, June 13-24, 2002. The ASI aims to advance the training and instruction of exceptional young physicists in current experimental techniques and theoretical developments. It will also enhance contacts between the leading scholars from different countries and the young physicists. The funds will be used to cover the costs of travel and accommodations for speakers.